Crustal Genesis and Mineralization in the Eastern Dharwar Craton, South India, Award in Indian Currency

Description: This project supports collaborative research by Dr. V. Rajamani, Jawaharlal Nehru University (JNU) New Delhi, India and Dr. G. Hanson, SUNY, Stony Brook, NY. The research continues work done previously on the Kolar Schist Belt, and begins studies of the Ramagiri and Kadiri Schist Belts to the north of the Kolar Schist Belt. Previous studies suggest that the Kolar Schist Belt is a suture which separates two Archean gneiss terranes with different geologic histories. Also within the belt the amphibolites from the eastern and western sides have different isotopic and incompatible element characteristics suggesting their development from independent sources. The proposed studies will attempt to study the adjacent belts to learn of the tectonic processes leading to the present composition and formation of these belts. The area is known to have mineral deposits of ecomonic significance. Scope: The two teams from JNU and SUNY Stony Brook have collaborated for several years under previous NSF grants with considerable success and with significant resulting publications. That work has also formed the research dissertations for several Ph. D. students at both institutions. It is highly likely this project will continue this strong, productive cooperation. Funding: This project is being funded under two grants: 1. JNU New Delhi: FY89 $91,143 in Indian rupees 2. SUNY Stony Brook: FY89 $10,571 in Indian rupees + US $13,800 FY90 $11,143 in Indian rupees + US $13,800 FY91 $11,714 IN Indian rupees + US $13,800